HiGene: A Genome Sequencing Project for High Schools

Rutgers University will provide a comprehensive project in molecular biology and bioinformatics that engages high school teachers and students in DNA sequencing research. More than 75 teachers will participate in the project over a three-year period for a minimum of 140 contact hours (120 hours during the summer, and at least 20 hours during the academic year). Approximately 30 students per year will attend the summer program and 300 additional students will engage in the Project during each academic year. Teachers will learn DNA during a Bioinformatics Summer Institute and will engage their students in the process during the academic year. Upon completion, teacher and student project results will be submitted to the DNA sequence database.